Workshop on Uncertainty Management in Information Systems: From Needs to Solutions

Uncertainty pervades real world scenarios, and must therefore be incorporated into every information system that attempts to provide a complete and accurate model of the real world. Yet, present generation information systems have very limited capabilities in this regard. On the other hand, many theoretical models have been proposed for the management of uncertainty, but often without thorough understanding of the actual problems faced by researchers, developers, designers and users of information systems. This project concentrates on a planning workshop that will bring together leading researchers in the scientific communities of information systems (e.g., database systems, information retrieval systems, expert systems, office information systems) and uncertainty modeling (often working within frameworks such as mathematical logic, probability theory, fuzzy set theory, possibility theory, and evidential models) to study the needs of the information systems community and to tap the expertise of the uncertainty modeling community, for solutions that respond to these needs. This workshop will promote true dialogue between these two scientific communities; it will establish the state of the art in this field, and will set the course for future research. The project, which is co-sponsored by the European Esprit program, will foster collaborations between researchers in the United States and Western Europe.